Electrochemistry of Strongly Adsorbed Heme Proteins

This project is in the general area of analytical and surface chemistry and in the subfields of bioelectrochemistry, electron transfer and modified electrodes. A fundamental investigation of the interfacial electron transfer reactions of immobilized proteins that undergo oxidation-reduction reactions on electrodes will be undertaken. The results will help to elucidate the electronic coupling between enzymes and electronically conducting materials. They will also provide insight into biological electron transfer processes as "protein/electrode complexes" can be considered analogues of physiological protein/protein complexes. A variety of electrochemical and spectroscopic methods will be employed. Adsorption isotherms, protein orientation, adsorbate nativeness and electron transfer activation parameters will be determined. The heme proteins cytochrome c, cytochrome c552, and cytochrome c peroxidase, adsorbed on tin oxide electrodes, will be investigated to enable evaluation of the roles of electron transfer distance and electrostatic surface interactions as rate-controlling factors. Systematic study of the electrochemical characteristics of adsorbed proteins that undergo oxidation-reduction reactions will aid in elucidating the role of electron transfer in biological systems. The results will also aid in the design of efficient biological probes and sensors.